SGER: A New Technique for Fine Scale Study of Small Animal Behavior

This project involves the development of a new electronic system for remote monitoring of small-bodied animals. This method offers two distinct advantages over existing methods. First, a substantial increase in spatial detail; the system will perform nonstop tracking of individuals to within tens of centimeters in three dimensions. Second, it will be extended to continuous monitoring of many individuals simultaneously. Data recorded will ultimately comprise a series of xyz coordinates taken every few hundred milliseconds for each one of the individuals being monitored within a few hundred meter radius. The system will have a modular design that permits expandability to cover larger areas. These new capabilities are derived from a novel twist on the conceptual design of the Global Positioning System while using existing technology to realize this design.

The development of this monitoring system will allow fine grained recording and analysis of behavior of small-bodied animals in natural settings. This level of resolution will provide previously unavailable information of significant value for studies in the fields of Animal Behavior, Population Biology and Ecology.